CT-ISG: Alternate representation of NIDS/NIPS signatures for fast matching

Proposal: 0715358
Cristina Estan
University of Wisconsin
CT-ISG: Alternate Representation of NIDS/NIPS signatures for fast matching

Network intrusion prevention systems (IPSes) play an important role in
protecting computers against attacks originating from the
network. Signature matching is a performance-critical operation that
each IPS must perform: after storing a reassembled TCP-level byte
stream or a field of a higher level protocol in a buffer, the IPS
needs to decide whether it matches any of the signatures that describe
known attacks. This project investigates methods for representing
signatures that allow fast matching, require little memory, and can
support complex signatures expressed as regular expressions.

Currently used representations, such as deterministic finite-state
automata (DFAs) and non-deterministic finite-state automata (NFAs),
have severe drawbacks. In general, DFAs enable fast matching but are
space inefficient and NFAs are concise but are slow to match
against. Solutions based on multiple DFAs have intermediary matching
speeds and memory requirements. One of the core reasons why such
solutions provide unfavorable speed versus memory tradeoffs is the
state-space explosion problem.

This project focuses on a novel signature representation that
neutralizes statespace explosion: extended finite automata
(XFAs). XFAs extend DFAs with a few bytes of ""scratch memory"" used to
store bits which record auxiliary information during the matching, or
counters which record progress. When an accepting state is reached,
the scratch memory is checked and a match is declared only if it holds
suitable values. Preliminary results on signature sets from Snort and
Cisco IPS show that compared to solutions using multiple DFAs, XFAs
can be 10 times smaller and at the same time 5 times faster in
software.